NSFNET Connection

American University is establishing a connection to NSFNET via a 1.544 million bits per second line through the SURANET mid-level network. The connection enhances collaborations of campus scientists with colleagues at other institutions, and allows access to libraries and other remote facilities throughout the internet. This award funds part of the costs for one year.***//